Conference: Frontiers of Living and Colloidal Active Systems

NON-TECHNICAL SUMMARY:
Active matter describes systems whose individual parts turn energy into their own motion. Examples include, swimming bacteria, living cells, and synthetic particles that propel themselves. Each unit follows simple local rules, yet together they form swirls, jets, and other coordinated patterns. The physics that governs these patterns also underlies the design of microscopic robots, the printing of living tissue, and drug delivery inside the body. This award supports an international conference on active matter, held in Puerto Rico. The conference advances the national interest and NSF's mission to promote the progress of science and to advance the national health, prosperity, and welfare by strengthening research and the scientific workforce in this growing area of biotechnology. A public lecture on active matter in everyday life, real-time updates on social media, and freely available proceedings extend the results of this conference to students, teachers, and the general public.

TECHNICAL SUMMARY:
This award supports a five-day conference on the frontiers of living and colloidal active systems, organized by the University of Puerto Rico - Mayaguez and Penn State University. Active matter comprises of self-propelled units that convert stored or ambient energy into directed motion, generating collective phenomena across scales from cytoskeletal extracts and bacterial suspensions to motile eukaryotic cells and synthetic colloidal swimmers. Work in the field draws on experiment, theory, and computation, and helps to maintain U.S. leadership in biotechnology. The conference consolidates recent progress and examines the principles that govern alignment, disorder, and information processing, including the roles of quenched disorder, heterogeneous environments, and intrinsic agent dynamics in collective behavior. The program follows the format of a Gordon Research Conference, with keynote lectures by senior researchers, invited talks by mid-career researchers, short talks by junior researchers, and student poster sessions. The program further reserves time each day for collaboration. The meeting brings together physicists, biologists, chemists, applied mathematicians, computer scientists, and engineers to chart research directions toward intelligent active materials and disorder-mediated control. Its broader impacts include participation by students, early-career scientists, and faculty, as well as a public lecture on active matter in everyday life, dissemination through news media and social media platforms, freely available proceedings, and follow-up activities that support continuing collaborations.